Space Weather: Radiation Belt Formation During Geomagnetic Storms

This project will use Magnetohydrodynamic (MHD) simulations in conjunction with test particle tracing to examine the formation of the outer radiation belt. The outer radiation belt is known to be formed during geomagnetic storms, but the detailed mechanisms by which electrons are energized to form the belt are very poorly understood. MHD simulations will be used to determine the basic structure and time development of the magnetospheric electric and magnetic fields and at each time step, test particles will be followed to determine where and how they are energized.